Geometry and topology of group actions on symplectic and contact manifolds

DMS-0204448
Eugene Lerman and Susan Tolman

The main subject of our proposal in the geometry and topology of group
actions on symplectic and contact manifolds. The underlying theme is
that these symmetries offer a very powerful tool for classifying or
computing invariants of such manifolds. More specifically, ideas that
we will investigate include: the cohomology of symplectic quotients by
loop groups, the cohomology of contact quotients, highly symmetric
manifolds, the Gromov width of coadjoint orbits, the topology of the
group of symplectomorphisms, uniruled symplectic manifolds,
foundational work on group actions on contact manifolds, the
relationship between completely integrable systems and toric contact
manifolds, and explicit constructions of special metrics on contact
manifolds.

The goal of the project is to further our understanding of two
important types of geometry --- symplectic and contact. Both
geometries have their origins in mechanics and optics and are
currently of interest to physicists investigating string theories.